The Integration of Tissue Culture Techniques Into New and Existing Biology Laboratory Curricula

The college is integrating cell culture techniques into functional biology laboratory curricula by developing a tissue culture facility. The introduction of these techniques is vital to improving student comprehension of lecture material through hands-on laboratory experiences. Course work affected includes Immunology, Cell Biology, and Developmental Biology; in addition, the equipment enables students to perform a wide variety of senior research projects in these areas. The college's goal is to provide in vitro models designed to enhance biology students' understanding of immunity, cell physiology/biology, and molecular biology. A thorough understanding of these areas is critical for undergraduates pursuing medical and research careers. The major equipment obtained through this project includes a laminar flow hood, a climate controlled (CO2) incubator, a refrigerated table-top centrifuge, a microplate reader, and an inverted microscope.